Conference on Neurobiology Techniques, Cognition and Computer Simulation for 20 Faculty Who Teach Undergraduate Experimental Psychology, Summer 1990

The conference addresses the need of undergraduate experimental psychology faculty who lack first-hand experience with current neurobiology techniques and computer programs for laboratory experiences in learning, perception and cognition. It also permits such individuals to interact with leading experts in the field. Participants are acquiring basic neurobiology techniques, developing computer-based laboratory programs, participating in a network exchange of teaching concepts, learning to establish modern computer-driven operant laboratories at their home institutions, discussing significant research and review articles, and interacting with leading experts in experimental psychology and neurobiology. The twenty faculty are spending two weeks on campus studying neurobiology techniques, computer simulation and reviewing literature followed by a third week interacting with eight experts at the Pingree Park mountain campus. Participants will return to their home institution with enhanced teaching skills and subject matter content as well as insights into improving laboratory experiences for undergraduates.